K-Stability of Algebraic Manifolds

Abstract

Award: DMS-0505059
Principal Investigator: Sean T. Paul

This proposal aims to relate the stability of a complex
projective variety to intrinsic geometric analysis on the
variety. Often, the PI is concerned with the small time
asymptotics of complicated rational energy integrals over the
variety under study. This idea was initiated by the PI in his
dissertation. The energies arise in connection with the problem
of establishing the 0th order apriori estimate for solutions to
the Monge Ampere equation.

Broadly speaking, there are two ways to mathematically approach,
or model, a given problem: continuously, or
discretely. Traditionally, these are quite seperate
approaches. Analysis (differential equations in particular) is
the time honoured subject in the continuous domain, combinatorics
(the study of enumerating a finite amount of data) is the
hallmark of the discrete approach. In this proposal these two
methods come together-the PI will explore the question of how the
solution to an equation from analysis might be obtained by a
purely finite (but large) collection of data. The equation
appeared in Einsteins' theory of Gravitation, whereas the finite
set of data arose in the mathematics of the 1800's, and is
related to the theory of computer vision.